Postdoctoral Fellowship: MSPRF: Combinatorial Shadows from Coxeter Groups in Representations of Algebras and Kazhdan-Lusztig Theory

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Grant Barkley is “Combinatorial Shadows from Coxeter Groups in Representations of Algebras and Kazhdan-Lusztig Theory”. The host institution for the fellowship is the University of Michigan - Ann Arbor and the sponsoring scientist is David Speyer.